Characteristics of Cloud-to-Ground Lightning in the Contiguous United States

This proposal is a subcontract of Richard Orville's proposal, ATM-9022987, entitled "Characteristics of Cloud-to- Ground Lightning in the Contiguous United States."